RUI: Surface Roughness Studies Using the Scanning Tunnel Microscope

This project is to establish a Scanning Tunnel/Atomic Force Microscopy (STM/AFM) program at Appalachian State University. This program will be used as a teaching tool for undergraduates and will provide research opportunities for both undergraduate and graduate students in Applied Physics. The research projects will focus on the surface characterization of materials provided by Dr. Phil Russell as a collaborative effort between ASU and the Precision Engineering Center at North Carolina State University. The STM will be used to study three specific areas: surface roughness of metal overlayers, optical component quality, and nanometer metallization. The STM is a surface analysis tool which is limited to the study of conducting samples. The surface roughness of thin metal overlayers on insulators will be examined in an attempt to find materials which: form a uniform overlayer; can be studied with the STM; and preserve the insulator surface topography. Surface roughness studies can also be used to provide insight into the processing of high quality optical insight into the processing of high quality optical components, which often requires surface features to be less than a few atomic units. Lastly, nanometer metallization of silicon will be explored by using a low energy (-10eV) beam from the STM to dissociate PD from Pd-Ac thin films.